Helping Your Child Learn Science

This book was developed by OERI to help parents meet goal 4 of the National Education Goals. It has some descriptive text, a number of activities that parents and children can do together, and an extensive list of resources for parents and children. The book has been very successful, and OERI has printed 150,000 copies and distributed them through the Consumer Information Center. The copies being printed under this agreement will fill orders still being received by the Consumer Information Center for free copies. The inside front cover will indicate that these copies were printed and distributed by the National Science Foundation. When we get ready to do a new edition, we will check with NSF to assure that the Science in the book is current.